2002 Oceanographic Instrumentation for R/V Weatherbird II

0200054
Black
This award to Bermuda Biological Station for Research provides instrumentation to expand the oceanographic research capabilities of the research vessel Weatherbird II, a ship operated by BBSR as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The acoustic current profiler and attitude determination unit will be a shared-use capablity that will enable all researchers using the ship to measure ocean currents in the upper few hundred meters of the water column while the vessel is both underway and on station. Funds have previously been provided to build a well in the vessel to house the current profiler, and it can be installed without requiring drydocking. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2002 and future years. They will provide an important new and routine set of measurements of currents to augment the long time-series data on water and atmospheric properties collected in the vicinity of Bermuda.
***